Support for the Drosophila Species Collection

This award provides continued support for the operation of the National Drosophila Species Resource Center (NDSRC) at Bowling Green State University. The NDSRC collects and maintains a collection of living culture of 260 Drosophila species. The center serves a broad area of biological research community by supplying properly identified cultures of Drosophila species, and providing information and technical assistance. The Center also provides limited research facilities to scientists interested in working with the collection on site. Current users of the Center include scientists in the areas of developmental biology, cellular and molecular biology, evolutionary biology and systematics. In addition, the Center collection is often used for teaching purposes both at the college undergraduate and high school levels.